ROW: Is Phosphine Production an Important Component of the P Cycle in Aquatic Systems?

Phosphorus is important in the control of primary production in aquatic ecosystems. The extent to which sediments recycle phosphine to overlying waters is critical to system function. Earlier research indicates that the oxygen content of water is a primary controlling variable in phosphorus release from sediments. This project will evaluate the role of phosphine gas (PH.3) in the phosphorus cycle of aquatic ecosystems. The investigator is well qualified. Institutional support and environment are excellent. The research could have significant implications for wetland management.